I-Corps: Translation Potential of Compact and Scalable Quantum Gravimeters for High-Order Gravity Field Measurements

This I-Corps project is based on the development of quantum gravity sensor that can measure gravity and variations in Earth's gravitational field. Precise gravity measurements are needed for applications such as natural resource exploration, civil infrastructure assessment, environmental monitoring, and navigation when global positioning system (GPS) is unavailable. This technology is a compact and scalable instrument that is capable of simultaneously measuring gravity at three different elevations, providing more detailed information about subsurface structures than existing gravity sensors. This technology has the potential to improve the efficiency and sensitivity of gravity surveys while expanding access to advanced gravity sensing for a wide range of applications.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of compact and scalable quantum gravimeters. This technology is based on cold-atom interferometry and features an optical architecture that uses a single laser beam to create three vertically separated cold atomic clouds and simultaneously operate three atom interferometers. This approach reduces system complexity compared with existing quantum gravimeters and gradiometers while simultaneously measuring absolute gravity, gravity gradient, and gravity curvature. The quantum gravimeter may improve subsurface characterization, suppress vibration-induced measurement errors, and expand the practical use of quantum gravimeters in field applications.